Instrumentation for Soil Science Curriculum

This project will improve the soil science curriculum at the University of Minnesota, Waseca (UMW) through the use of analytical equipment. The new equipment will greatly enhance instruction in the areas of soil testing and plant analysis, soil fertility, and basic soil science. Upon graduation, virtually all students in the various majors of agriculture and horticulture at UMW will have to develop soil fertility programs that are economically viable and environmentally sound. Students need a thorough understanding of the tests used to evaluate the fertility status of soils and plant tissue. They also need to understand the movement of nutrient ions through the soil and the potential for contamination of surface and groundwater. Effective teaching of these concepts must take place in a laboratory setting with appropriate instrumentation. Instruments to be utilized in the project include an atomic absorption spectrophotometer to analyze soil and plant extracts for K, Ca, Mg and micronutrients; a fiber-optic colorimeter to measure phosphorous; a nitrate electrode and pH/ISE meter to determine nitrate levels in soil and water samples; and a microwave system for digestion and ashing of plant tissue. The equipment will be used by students in regular classes and by high-ability students conducting undergraduate research projects. The University will match the award with an equal amount of funds.